Singularity Models for Ricci Flow

Abstract

Award: DMS-0505920
Principal Investigator: Dan F. Knopf

The project will advance the search for canonical geometries by
means of geometric heat flows. In light of the landmark progress
made recently by Perelman in Hamilton's program to resolve the
Geometrization and Poincare' Conjectures, this research area is
undergoing a rapid and productive expansion. The powerful
innovations and profound insights in Perelman's work contribute
to the extraordinary power of Ricci flow as a tool for
investigating the geometry and topology of Riemannian and complex
manifolds. In virtually all known applications of Ricci flow, it
is critical to have a deep understanding of the mechanisms of
singularity formation. Therefore, the project will investigate
four aspects of singularity formation. These four objectives are
chosen to build upon the prior results and current research
program of the PI and to be highly relevant to promising new
applications of Ricci flow. The objectives are to study (1)
asymptotics of Ricci flow singularity formation, (2) analysis of
Ricci flow singularities in dimension four, (3) analysis of
singularity models for Kaehler-Ricci flow, and (4) the structure
of reduced geometry.

A manifold is an object that - like our universe - looks like
Euclidean space locally, but whose global topology and geometry
may be much different. The broad goals of this project are to
find optimal geometric structures with which to categorize
manifolds. The methods used are certain partial differential
equations called geometric heat flows. The idea is to let a
geometric object evolve in time in such a way that its geometry
improves and simplifies, possibly after a change in topology. A
geometric heat flow called the Ricci flow has just yielded major
breakthroughs in two of the most difficult open problems in
mathematics. These successes provide great incentives to apply it
to other challenging open problems and make it a very active and
competitive field of research. The types of partial differential
equations studied in Ricci flow have much in common with those
used to model the movement of oil in shale and in thin films,
combustion in porous media, heat propagation, avalanches,
population dispersal, the spreading of microscopic droplets, and
certain effects in plasma physics. For this reason, methods
developed in this project may have important applications to
those areas of applied mathematics. The project will focus on the
delicate analysis needed to understand such equations as they
become singular. This analysis should have important broad
applications, among which are the following. (i) The methods
developed, especially asymptotic analysis, should extend to the
practical applications mentioned above. (ii) The project will
promote interdisciplinary interactions with physics, where there
are many applications for geometric classification and flow
techniques. For example, theorists in general relativity want to
classify possible topologies of four-dimensional
space-times. Researchers in string theory and mirror symmetry are
interested in understanding certain six-dimensional
manifolds. The Ricci flow itself is an approximation to the
renormalization flow for an important model in quantum field
theory. (iii) The project will benefit graduate education,
because the PI will invest time helping students develop
expertise in relevant areas of geometry, analysis, and topology.